Gordon Research Conference on the Solid Hydrogens, Oxnard, California, January 8-12, 1990

This will be the first Gordon Research Conference on the solid hydrogens; it is scheduled to be held January 8-12, 1990, in Oxnard, Calidornia. A sizeable international participation is expected, including ten scientists from the USSR, where major advances in this field have been made.